CAREER: Value Function Approximation for Control of Complex Systems

9985229
Van Roy

This proposed research is devoted to the development of streamlined and reliable computational methods for value function approximation. A successful outcome would be approximation algorithms that are widely-accessible and effective in the control of complex systems.

Proposed approximation methods build on work in the area of neuro-dynamic programming which is sometimes called "Approximate Dynamic Programming" or "Reinforcement Learning." Algorithms that will be developed are based on approximate value iteration, temporal-difference, learning, and linear programming. A method for "feature selection" involving the use of value functions associated with simplified problems will also be explored.

To promote a pragmatic view of methods under development, and to provide a testbed for evaluation of ideas, two applications have been chosen to play integral roles in the project: dynamic risk management and the control of multiclass queuing networks.

The educational component of this project includes a new graduate level course on neurodynamic programming together with a realignment of current courses to incorporate a greater emphasis on computation, to foster an appreciation for the use of approximations when system become more complex, and to promote a unified view of stochastic control problems across many disciplines.
***